Experimental High Energy Physics

This award is for renewed funding of a diverse program of research in elementary particle physics. Support is requested for a senior faculty member, a postdoctoral research associate and one - two graduate students during the requested three year grant period. The planned program consists of participation in four activities: continued analysis of data of three experiments taken some years ago at Fermilab, R&D on muon subsystems and solar cells as active calorimeter elements aimed at a detector to run at SSC early next century, continued construction of the MACRO detector at the Gran Sasso underground laboratory in Italy, and a search for magnetic monopoles possibly trapped in meteorites that landed in Antarctica. Approval will be asked of the Fermilab Program Advisory Committee to build and install at the Tevatron a prototypical detector to study high rapidity products of p-p collisions.